Mathematical Sciences: Geometry and Arithmetics of Curves

9403905 Zakhar The scope of research to be undertaken by I. Zakharevich entails the geometry and spectral analysis of the Riemann zeta function along with the direct and inverse scattering transform with parameters. The research is intimately linked with the theory of differential equations arising in many mechanical and dynamical systems. ***